Lock-Free and Wait-Free Synchronization in Multiprogrammed Systems

Research will be conducted on lock-free and wait-free shared- object algorithms for multiprogrammed systems in which several processes may execute on the same processor. In such systems, process delays are quite common, due to preemptions. Most lock- based synchronization algorithms perform poorly in the face of such delays, because a delayed process holding a lock can impede the progress of other processes waiting for that lock. Furthermore, lock-based algorithms are susceptible to problems such as deadlock and priority inversion. Lock-free and wait-free algorithms do not suffer from these problems. Previous research on lock-free and wait-free algorithms has almost exclusively focused on asynchronous execution models in which processes may interleave arbitrarily. Such models can be a hindrance when designing algorithms for multiprogrammed systems, because they force interleavings to be considered that cannot arise. What is needed is a new framework for lock-free and wait-free synchronization directed toward multiprogrammed systems. The main objective of this project is to develop such a framework. This framework will be established through a combination of research on lock-free and wait-free algorithms for multiprogrammed systems, and lower-bound results relevant to the development of such algorithms. The framework will be experimentally evaluated using simulation models, synthetic workloads, and real-world applications.